Knot and 3-Manifold Invariants, Seifert Surfaces and Dehn Surgery

Abstract

Award: DMS-0104000
Principal Investigator: Efstratia Kalfagianni

The PI will study the ``finite type" invariants of knots and
3-manifolds by using techniques from classical 3-dimensional
topology and search for geometric information encoded in these
invariants. First, she will continue her work on developing the
theory of finite type invariants for knots and links in arbitrary
3-manifolds by using techniques from the theory of atoroidal
decompositions of 3-manifolds. She also plans to work on
relating the Vassiliev knot invariants to properties of Seifert
surfaces spanned by the knots and to intrinsic invariants of the
knot complement. This will extend classical results about the
topology of the Alexander polynomial to the Jones polynomial and
its generalizations. Finally, the PI plans to search for
relations between the Jones polynomial of a knot and the
fundamental group of 3-manifolds obtained by Dehn surgery on the
knot.

The research of the project lies in the area of 3-dimensional
topology the central objects of study of which are spaces called
3-manifolds. A 3-manifold is an object that locally looks like
the ordinary 3-dimensional space but whose global structure can
be complicated. A main goal of 3-dimensional topology is to
understand these structures and achieve a classification of
3-manifolds. An important part of 3-dimensional topology is also
the study of knots (loops embedded in some tangled way in
3-manifolds) and their classification. One of the ways that
topologists have been approaching these problems is through the
use of ``invariants". In the recent years, ideas originated in
physics, lead mathematicians to the discovery of a variety of
invariants of knots and 3-manifolds. The central theme of the
PI's project is to understand the properties of these invariants,
using ideas from traditional 3-dimensional topology and from
physics, and to look for applications to the aforementioned
classification problems.